Third Pan American Symposium on Perspectives for Pan American Collaboration in Experimental Particle Physics; Rio de Janeiro, Brazil; October 19 - 23, 1987

This award provides partial support for the cooperatively organized Third Pan American Symposium on "Perspectives for Pan American Collaboration in Experimental Physics" to be held in Rio de Janeiro in October, 1987. The Symposium is being organized by Dr. Leon M. Lederman of the Fermi National Accelerator Laboratory in cooperation with Dr. Alberto P.S. Santoro of the Laboratory of High Energy Experimental Physics of the Brazilian Center for Physics Research, Rio de Janeiro. During the Symposium a review of the status of high energy particle physics and a survey of other physics fields will be presented. The aims of the Symposium are to increase Latin American participation in high energy physics and in its associated technology and to explore opportunities for intra-Hemispheric cooperation in this scientific area. High energy physics, while of itself a vital field of modern scientific exploration, also provides training for diverse types of scientific endeavors, and therefore aids in the development of a general scientific infrastructure. Until such time as Latin American countries can afford to build more of their own accelerators, this Symposium can stimulate and assist in the formation of high-energy physics groups which can use U.S. facilities. The two previous symposia in this field, in 1982 and 1983, were quite successful in stimulating important collaborative efforts in which Latin Americans made substantial contributions to collaborative experiments conducted in the U.S., and benefited greatly from their experience here. In addition, the effect of the leverage of these collaborative efforts can be great in terms of physics education, with each Latin American teacher or researcher affecting in turn perhaps hundreds of students or colleagues. Overall, both the scientific and educational benefits of this Symposium can be expected to be large.